Mathematical Sciences: The Hydrodynamic Model for Semiconductor Devices: Theory, Computations, and Parallel Algorithms

This project focuses on theoretical and computational investigations of the flow of electrons in one and two spatial dimensions in semiconductor devices based on the hydrodynamic model. Semiconductor devices have substantial importance in engineering and physical applications.